Acquisition of Packaging Research Equipment for the Alabama Microelectronics Science and Technology Center

9512343 Jaeger This proposal requests equipment to upgrade the research equipment that directly supports the packaging research activities of the Alabama Microelectronics Science and Technology Center (AMSTC). The AMSTC concentrates on monolithic integrated circuits with an electronic packaging focus and emphasis in the AMSTC facility is the multichip module (MCM) assembly capability to test and package high pin-out MCMs which operated over an extended temperature range. ***